Seminar on Stochastic Processes 1999

9901125
Evans
The 1999 Seminar on Stochastic Processes will be held at the Fields Institute for Research in Mathematical Sciences, Toronto, Canada from March 18 to 20, 1999. The seminars have become one of the most important regular seminar series for probabilists. They attract and bring together an active group of eminent researchers and young specialists in probability and stochastic processes. This award will provide travel support for US participants. The funds will be used primarily for women and junior researchers.